SBIR Phase II: IBEX - Restoring Functional Mobility in the Elderly Through In-Bed Exercise

This Small Business Innovation Research Phase II project completes development of a production In-Bed Exerciser (IBEX) and tests its efficacy. This unique, active exerciser is a portable and efficient means of giving, in bed, physical therapy sufficient to maintain or restore the walking muscles of bedridden people. Geriatrics are especially vulnerable to bed confinement; they can lose ability to walk after 5-10 days. Becoming bedridden is a leading indicator of mortality for the elderly. A growing elderly population, a shortage of Physical Therapists, their inability to provide force levels and intensity of exercise needed, and pressure to constrain medical costs, demand such a machine. The Company has innovated a portable exerciser that attaches to the bed, is computer controlled, provides bilateral, reciprocal or one-leg exercise and records performance. Phase I demonstrated feasibility.

The objective of this SBIR Phase II project is to use scientifically designed clinical trials to prove efficacy. Results are the prelude to successful commercialization according to the enclosed plan. The greatest social benefit will be improved quality of life for the elderly.